RI: Small: Efficient Projection-Free Algorithms for Optimization and Online Machine Learning

The advent of the Internet gives rise to an exponential growth in data collection, availability and complexity. With it increases our need for more efficient data analysis algorithms. Over super-scale datasets, the only feasible data analysis techniques are iterative linear-time first-order optimization methods.

The computational bottleneck in applying these state-of-the-art iterative methods to machine learning and data analysis is often the so-called "projection step". This project addresses the need to design projection-free optimization algorithms that replace projections by more efficient linear optimization steps. A key contribution of the project is the continual dissemination and transfer of this technology. The open-source software releases will continue to enable large-scale machine learning applications in science and engineering. The broader impact goals of the project, beyond theory and algorithms, include the development of a textbook on efficient optimization techniques in machine learning, as well as the development of a new curriculum focused on preparing students for the scientific and engineering needs in this field.